Low-Cost Distributed Solar-Thermal-Electric Power Generation

Low-Cost Distributed Solar-Thermal-Electric Power Generation

We discuss the technical and economic feasibility of a low-cost distributed solar-thermal-electric
power generation technology based on the use of a solar thermal collector (STC)in conjunction with
a free-piston Stirling engine.The solar thermal collector is to be comprised of low-concentration
nonimaging concentrators and absorbers with spectrally selective coatings.The Stirling engine
converts moderate temperature heat to electricity by way of integrated electric generation.In spite
of its relatively low conversion e .ciency,the proposed system can be a cost-e .ective alternative to
solar photovoltaic (PV)modules,as discussed in the project description.
The system is conceived to operate with collector temperatures in the range of 125 .C to 150 .C,
which is consistent with the use of stationary solar thermal collectors employing low-concentration
nonimaging re .ectors.Thus,the system avoids the costs and maintenance issues associated with
tracking collectors based on high concentration ratio concentrators.
We take the view that cost e .ectiveness of solar electric technologies should be judged by
output power per dollar rather than by e .ciency or other technical merits.This view re .ects the
observation that there are vast untapped siting opportunities in both urban and rural regions of
the world.Research into photovoltaics has been focused on improving e .ciency because there
has been no signi .cant decrease in the inherent cost of silicon wafer area.However,the proposed
solar-thermal-electric system is designed for fabrication out of low-cost materials.A collector is
built of glass,aluminum,copper,and insulation,while engines and generators are primarily steel,
aluminum,copper,and plastics.In high-volume manufacturing,the cost of the proposed system
will be determined by the weight of its bulk materials.This study of solar-thermal-electric systems
involves searching for a more cost-e .ective balance between system e .ciency and materials cost.
Broader Impacts Energy independence and diversi .cation through the use of renewable dis-
tributed sources is essential for the future of our society.In the project description,we make a case
that the proposed technology will cost on the order of $1 per Watt of peak output power.As such,
this technology would represent at least a .ve-fold improvement over photovoltaic technology in
terms of cost.A simple estimate of energy cost using the proposed technology based on an average
of only four hours per day of operation over a modest ten year lifetime indicates a cost of about
$0.066/kW-hr.Although not equal to the lowest costs for electricity,this is certainly an energy
cost that makes the technology very valuable when considering the additional advantages of its
nature.Namely,this is a distributed renewable energy source with an availability that is fairly well
matched to peak demand times.Further,this technology is well suited to distributed deployment
in an analogous manner to that of photovoltaic generation.As such,it will be valuable for remote
sites where utility infrastructure is non-existent or too costly as well as for residential and business
sites as an alternative to photovoltaics.
The PI has been active in integrating research into new and existing classes,and plans to con-
tinue this in conjunction with the proposed work.The PI also actively seeks to include underrep-
resented student groups in his projects.UC Berkeley hosts the SUPERB (Summer Undergraduate
Program in Engineering Research at Berkeley,http://www.coe.berkeley.edu/cues/superb/index.html)
program which targets underrepresented and minority students.The PI plans to actively recruit
in the SUPERB program for students to participate in the proposed project during the summer
periods.
Intellectual Merit A direct strategy for enabling a renewable energy source by seeking to min-
imize the cost-to-output-power ratio is outlined.We analyze the cost of an integrated system
including a solar thermal collector and a low-temperature Stirling engine.Novel multi-phase free-
piston Stirling machine designs are proposed along with rigorous analysis techniques for their design
and evaluation.Speci .cally,a Stirling machine with no mechanical linkages and only three moving
parts is discussed.This is a design that inherently permits for a long maintenance-free lifetime and
for very low frictional losses.
1